Foldable Block Copolymers with Function

The goal of the proposed science is to create synthetic artificial enzymes solely based on carbon-carbon bonds that rival Nature’s biopolymers in activity and selectivity and allow for their use in applications in unnatural environments including folding processes in organic solvents, the use of harsher reaction conditions for transformations including reactions not found in natural enzymes, and to perform molecular recognition and sensing in water and organic solvents. These artificial enzymes will also provide a deeper understanding of Nature’s folding processes and allow for the use of this new class of artificial enzymes in biotechnology applications. More general, the proposed science will allow for the fabrication of the next generation of complex and functionalized biomimicking polymers for critical applications including optoelectronic, optical, biological, energy, biomedical, catalysis, and sensing. In addition, the research team will develop educational programs by hosting NYC public school children and introducing them to the excitement of chemistry through student-friendly science experiments in polymer chemistry, at an age when chemistry is not being taught in public schools. Examples of other activities include the Violet Alchemy, an outreach program to bring home-schooled kids into the lab and to explore chemistry with them at the lab bench.

The work will develop a new class of helical poly(thiophene)s with sequence specificity and end group functionalization via living catalyst-transfer polymerization (CTP). The new methodology will permit for facially amphiphilic polymers and block copolymers providing an entrance way towards hydrophobic and hydrophilic-based folding. A second polymeric methodology to be developed is based on the synthesis of a thiophene-carbene-based olefin metathesis catalysts, which can be used to initiative living ring-opening metathesis polymerization (ROMP) and will provide an initiating unit on one terminus for living CTP. To access a higher degree of control over folding processes, a combination of competitive solvents, increases in temperature, additives, and the use of a photo switchable hydrogen bonding recognition units will be explored. The folded 3D architectures will be endowed with function: catalysis. In close analogy to catalytic sites in Nature’s biomachinery, L-proline or imidazole derivatives will be attached to the synthetic enzyme-like architectures allowing for studying chiral induction as a function of chiral environment. The folding processes and the folded constructs will be characterized by a battery of techniques including NMR, UV, FT-IR, fluorescence and circular dichroism spectroscopies, gel permeation chromatography, cryo-transmission electron microscopy, micro-electron diffraction, small-angle X-ray scattering, dynamic light scattering, isothermal titration calorimetry, and MALDI-TOF mass spectrometry as well as thermal field flow fractionation.